SGER: A VLIW/Superscalar Heterogeneous Multi-core Architecture and the Compiler Support

Intellectual Merit
This research will help to address the challenging and pressing issue
of designing compiler-friendly multi-core architectures and developing effective compiler
support for automatically parallelizing single-threaded programs to fully utilize the
potential of multi-core processors. This research will also increase our understanding of
the interactions between VLIW core(s) and superscalar core(s) on a single chip for
collaboratively exploiting multi-grained parallelisms with different behaviors. The
developed simulator/compiler framework will also be made publicly available, which can
facilitate a number of stimulating follow-on researches, such as energy efficiency
evaluation of the hybrid multi-core, or studying the integration of the hybrid compiler and
O.S in multi-programming environments, etc.

Broader Impact
The success of this project will open the door to a number of possible
follow-on research projects to create practical hybrid multi-core processors and the
related software systems, which will smoothen and accelerate the transition to the multicore
processor-based systems and thus greatly benefit the microprocessor industry, as the
single-thread performance can be continuously improved without fundamentally
changing the programming paradigm. The proposed hybrid multi-core architecture can
also be potentially customized for a great variety of embedded applications that demand
both high performance and energy efficiency. Moreover, since future high-performance
computing systems are very likely to utilize the multi-core processors as the basic nodes,
the transparent single-thread performance enhancement achieved by this project will also
help to advance the power of computing into the next generation for meeting the toughest
computational challenges. Additionally, this project will attract and train graduate
students in multi-core architecture and advanced compiler design, and the research results
will also be incorporated into the graduate level computer architecture course, i.e., ECE
532, to better prepare the students for this rapidly developing field.